NeTS: Small: From Sensing To Sharing Across Networks In White Space

The anticipated opening up of white space by the FCC for unlicensed
use has created exciting new opportunities. It also presents unique
challenges: (i) it requires accurate wide-band spectrum sensing
technique to avoid interfering with primary users, and (ii) it needs
dynamic spectrum sharing in heterogeneous setting both within networks
and across networks.

This project develops a holistic approach for spectrum sensing to
address spatio-temporal variability and spectrum sharing among
multiple secondary users and networks in white space. In particular,
it first develops efficient and accurate spectrum sensing techniques
that simultaneously exploit time- and frequency-domain features,
sparsity in active transmitters, and temporal and spatial locality in
the transmissions. Second, it studies the cost and benefits of sharing
network state in a heterogeneous network where different nodes have
different information views. Third, it studies spectrum sharing across
networks (e.g., CSMA/MaxWeight, TDMA/CSMA co-located networks). It
develops algorithms and studies performance and fairness both with
implicit sharing (i.e., no state-exchange) and with explicit sharing
of information across networks. Fourth, it proposes a ground-up design
for white space that leverages random CDMA-like codes for spectrum
sharing with an OFDM physical layer that leads to a new efficient
architecture for sharing across users and networks in white space.

The algorithms, techniques, and software resulting from this research
will help enable effective communication in white space, create new
wireless network technologies, and deepen our understanding of
wireless networks. The research results will be incorporated into
networking courses and widely disseminated through conference/journal
publications and software distribution.